Advanced Design Methodologies for Large-Scale Electronic Circuits

The fundamental approach to designing, testing, and manufacturing electronic circuits has changed dramatically in the past decade. This undergraduate faculty enhancement project is intended to update university science and engineering faculty on the critical advances that have taken place recently in the area of electronic circuit design with the intent that participants will take this material back and immediately build it into their curricula. Phase one of this project will be held at Michigan State University (M.S.U.), where participants will receive intensive classroom briefings and gain laboratory experience with circuit design and circuit test equipment in the newly completed Electronic Research and Development Laboratory (ERDL). During phase two, participants will complete designs and prepare a report back at their own schools. During phase three, M.S.U. will serve as a center of expertise and assist the participants as they incorporate this new material into their curricula. Included will be at least one site visit to each participating university /college and a one-day workshop at M.S.U. Participants will be encouraged to keep in touch with each other and with the faculty at M.S.U. via electronic mail and other appropriate means to ensure that experiences gained can be shared. Seeking advice and sharing information will be encouraged even after the formal project has ended. In addition to the NSF funds, participants' institutions will contribute about 10% in travel funds toward the cost of the project.